Engineering Research Equipment- A 12.5 Giga-bit/sec Bit Error-Rate Test System

9610256 Carter A 12.5 Gbit/s BER tester will be purchased and used in exploring the potential of state-of-the-art fiber-optic communication systems. ***